Research Experiences for Undergraduates in the Scientific Applications of Neutrons

A program of summer research for undergraduates will be carried out at the University Research Reactor of the University of Missouri/Columbia. The laboratory has a broad range of research projects, both pure and applied, with the basic technique involved--neutron research--tying them together. A particular effort will be made to involve minority students.